A Study of Sequential & Parallel Approaches to the Solution of Nonlinear Equations Arising in Circuit and Device Simulation

This project focuses on the general problem of solving the non-linear equations arising from semiconductor device simulation and circuit simulation. Both sequential and parallel issues arising in the solution of these equations will be examined. Work has already been done on the solution of the linear equation arising from the Newton iteration in a one- dimensional device simulation. Work will continue for a two-dimensional code. The main ideas are (1) replacing the continuation methods currently in use with a multilevel method; and (2) developing a parallel solver for the 2D code. This entails either showing that the classical iterative method has speed-up large enough to overcome the sequential slowness of the algorithm, or generating a good MIMD preconditioner for a Krylov subspace method. With respect to circuit simulation, the investigation will be done in four areas. (1) Continue the work on a taxonomy of circuits for which simulation cannot fail. (2) Improve the non-linear solver in the circuit simulator CAzM. (3) Generate a parallel solver for large circuits. (4) Work on blocking methods for sparsely connected circuits. The project seeks to make a significant contribution to both the speed and the theory behind the solution of non- linear equations arising from circuit and device simulation.